Improving understanding of coupled impacts of oceans and waves on air-sea fluxes in the US Northeast Coast

The goal of the project is to determine if and how understanding and representing air-sea interactions improves the hindcast capabilities of high-impact weather events in the US Northeast Coast. The project will improve the simulations of turbulent fluxes of momentum, heat, and moisture in the surface layer and their coupling with the atmospheric and oceanic boundary layers. The research will also develop detailed diagnostic techniques for utilizing the existing ocean-atmosphere coupled boundary layer datasets to evaluate the high-resolution coupled model simulations. The results will help solidify the dynamical framework for enhancing our scientific understanding of upper ocean processes, air-sea fluxes, coupled boundary layer responses, and their imperative roles in regional weather and climate. The planetary boundary layer is recognized as a critical source of uncertainty for weather and climate models in the broader earth science community. The project will improve atmospheric modeling capabilities over the oceans, benefiting the weather and climate modeling communities and leading to improved weather and climate services.

The project will improve our understanding of the ocean and surface wave processes controlling air-sea fluxes and the structure and evolution of the marine atmospheric boundary layer in the US Northeast Coast. Included are detailed validations of high-resolution fully coupled ocean atmosphere-wave model simulations against in situ and remotely sensed observations of coupled boundary layer variables and directly measured air-sea fluxes uniquely available in the region. The project will refine and correctly incorporate the latest Coupled Ocean-Atmosphere Response Experiment (COARE) bulk flux algorithm in the Weather Research and Forecast (WRF) atmospheric model. The research team will then undertake comprehensive modeling and validation efforts of the planetary boundary layer and surface-layer processes under various atmosphere conditions, including extreme extratropical cyclones and stable boundary layers. Through extensive sensitivity experiments and climate scale simulations to quantify the impacts of the Gulf Stream current, sea surface temperature fronts and eddies, surface waves, and tides, the project will determine the critical roles of the oceans, surface waves, and air-sea interaction in shaping regional weather and climate.